WOCE Hydrographic Program Sections Along 88 Degrees West and 150 Degrees West - Tritium and Helium Analyses for the Upper Waters

This proposal is to make helium and tritiummeasurements on the World Ocean Circulation Experiment (WOCE) cruises in the southeastern Pacific on longitudes 88 and 150 west. These tracers data are used to identify upper ocean formation processes, and are important in the assessment of ventilation and subduction mechanisms. These measurements and related tracer observations, along with hydrographic measurements will form the basis for the ocean circulation descriptions and models which are the principal objectives of WOCE.